Developing New Services at the International Seismological Centre

EAR-9909662
Willemann

Since 1964, the International Seismological Centre (ISC) has produced the world's
most comprehensive and reliable global catalogue of earthquake hypocenters,
magnitudes, and associated phase data. In this project, the ISC will broaden and deepen
the data that it offers beyond those that have been reported in its Bulletin in the
past in three ways. (1) Integrate the Engdahl, van der Hilst and Buland
(EHB) catalogue and procedures; we plan to identify corresponding events
and arrivals in the EHB and ISC data and implement EHB procedures to extend
the catalogue forward. (2) Recover unassociated seismogram readings from the ISC
archive and insert them in the ISC's data management system; unravelling
data from a variety of formats over more than 30 years will make 40% more
readings available. (3) Integrate readings from a temporary PASSCAL experiment
into the ISC database as a prototype for routinely using temporary station
data. Seismologists will gain straightforward, reliable access to newly
integrated data from a well-known source. Further, the ISC will adopt new
procedures that enable ongoing compilation and free access of more data.